Higgs and Supersymmetry: Search and Discovery

9903444
Ramond
Dr. Ramond seeks funding to support young physicist to attend the "Higgs and Supersymmetry Conference" to be carried out on the campus of Florida University. This Conference will address the important physics issues related to Higgs and supersymmetry. Results from the current experiments will be presented by members from CDF, D0, DELPHI, and HERA. Members from CMS and ATLAS will talk about detectors that are under construction for operation at LHC. The Conference will also discuss one of the next generation colliders, the muon collider.